REU: Coastal Processes and Trophic Dynamics

This award supports a Research Experience for Undergraduates (REU) site proposal to provide research experiences for selected undergraduates in the marine and fresh water sciences, in order to aquaint them with the excitement and opportunities of academic research and to encourage them to pursue graduate studies and a career of research.